NMR and MRI Studies of Biomaterials. Structure, Dynamics, and Processing

9303870 Jelinski The goals of this project are to delineate the molecular and processing mechanisms that underlie the exceptional mechanical properties of spider dragline silk. Magnetic resonance imaging (MRI) of intact spiders and solid state nuclear magnetic resonance (NMR) of oriented fibers, will be used as the primary tools. Parallel mechanical measurements will be performed. The experiments proposed here will provide considerable new, molecular-level information about the structure, processing, and dynamics of this model biomaterial. It is likely that these results will contribute greatly to our ability to genetically engineer robust materials with designed properties. The MRI experiments, which will be performed as silk is being spooled from the intact spider, will test hypotheses concerning silk processing. Of special interest is the dehydration mechanism by which the silk biopolymer goes from an isotropic liquid in the silk gland to a highly oriented fiber as it exists the spinnerete. Direct NMR observation of dissected silk glands will also be performed. The solid state deuterium NMR experiments, to be performed on oriented, deuterium-labelled silk fibers, will specify the angles that specific amino acid sidechains make with respect to the fiber axis. The deuterium experiments will test hypotheses concerning (i) the role of water in the supercontraction phenomenon, (ii) the role of alanine residues in the elasticity of silk and (iii) the dynamic environment of glycine in the crystalline and amorphous regions. %%% In several instances Nature has conspired to produce biopolymers with superior materials properties. One example is spider dragline silk, which is stronger per cross-sectional area than steel. The goal is to understand the origins of these superior properties, so that someday it might be possible to produce "designer" materials based on insights gleaned from Nature. ***